An Ice Motion Survey for GISP2 Flow Modeling and Ice Core Data Interpretation

This award is for support of a two year project to extend a strain network, established by a European group, 30 km downstream from the GISP2 drilling site in order to provide additional data needed for modeling of the ice flow at the GISP2 site. The ice flow modeling is needed to provide information on the depth-age relationship of the deepest ice where annual layers are lost. This information is critical for dating the deep ice of the GISP2 core.